Science, Medicine & Technology in the 20th Century: The Difference Women's Studies has made, A Workshop at Princeton, NJ, October 2-3, 1998

This award supports a workshop to consider the impact of women's movements on science, medicine and technology, to meet at Princeton, N.J., on October 2 and 3, 1998. The workshop will assemble a small group of top scholars who will prepare papers for circulation, then met to discuss the papers and plan a larger conference to be held in Boston, M.A., in 2001. The larger conference will be open to all interested persons. Â?╝_ ?Â ?┬`ÀÁ> />┤ ¥©╝?┐À© ¥©Á ┤Á└Á%?║_Á>¥ ?Â ¥©Á _Á¥©?┤¢ >ÁÁ┤Á┤ ¥? │©/╝/│¥Á╝╣:Á ¢╣>À%Á¥ ?┬`ÀÁ> ┤Á%/`Á┤ Â%┐?╝Á¢│Á>│Á ¥©Á Â/¢¥ ╝Á/│¥╣?> ¥Á│©>╣╗┐Á¢ ┐¢Á┤ ¥? Á┬║%?╝Á ╣¥¢ ║╝?║Á╝¥╣Á¢ »╣¥© ¥©╣¢ /┴/╝┤ ¥©Á |╝À/>╣│ />┤ (/│╝?_?%Á│┐%/╝ ó©Á_╣¢¥╝` &╝?À╝/_ ¢┐║║?╝¥¢ ¥©Á ╝Á¢Á/╝│© ?Â ú╝ ó©╝╣¢¥?║©Á╝ ½ Ñ??¥Á ?Â ¥©Á úÁ║/╝¥_Á>¥ ?Â ó©Á_╣¢¥╝` />┤ í╣?│©Á_╣¢¥╝` /¥ ¥©Á ¡>╣└Á╝¢╣¥` ?Â ó/%╣Â?╝>╣/ <?¢ á>ÀÁ%Á¢ &╝?ÂÁ¢¢?╝ Ñ??¥Á ┴╣%% ┤Á└Á%?║ _Á¥©?┤¢ ¥? ║╝Á┤╣│¥ />┤ │?>¥╝?% ¥©Á │©Á_╣¢¥╝` ?Â /> Á>Á╝ÀÁ¥╣│ Â?╝_ ?Â ?┬`ÀÁ> │/%%Á┤ ¢╣>À%Á¥ ?┬`ÀÁ> ¥©/¥ ╣¢ │┐╝╝Á>¥%` ╣_║%╣│/¥Á┤ ╣> ¥©Á /À╣>À ?Â ¢┐> Á┬║?¢Á┤ ¢,╣> │/¥/╝/│¥ ╣>┤┐│¥╣?> />┤ ║©?¥?│/╝│╣>?ÀÁ>Á¢╣¢ &╝?ÂÁ¢¢?╝ Ñ??¥Á ¢ ╝Á¢Á/╝│© ┴╣%% ╣>¥╝?┤┐│Á ┐>┤Á╝À╝/┤┐/¥Á À╝/┤┐/¥Á />┤ ║?¢¥┤?│¥?╝/% ¢¥┐┤Á>¥¢ ¥? ¥©Á │©Á_╣¢¥╝` ?Â ¥©╣¢ Á>Á╝ÀÁ¥╣│ Â?╝_ ?Â ?┬`ÀÁ> />┤ ¥? ¥©Á ¥Á│©>╣╗┐Á¢ ¥? │©/╝/│¥Á╝╣:Á ¥©Á ║╝?║Á╝¥╣Á¢ ?Â ¥╝/>¢╣Á>¥ ╣>¥Á╝_Á┤╣/¥Á¢